2012 Renewable Energy: Solar Fuels GRC & GRS, Lucca, Italy, May 12-13, 2012 and May 13-18, 2012

1139170
Mallouk

This award will provide support for graduate student and postdoctoral research associate participation in the Gordon Research Conference (GRC) and Gordon Research Seminar (GRS) on Renewable Energy: Solar Fuels. The GRS and GRC will be held in Lucca, Italy on May 12-13, and May 13-18, 2012, respectively.

Intellectual Merit

The GRS, which will be primarily attended by graduate students and post doctoral research associates, and the GRC, which features oral presentations by the leading scientists in the field, will bring together senior and junior researchers, including engineers, materials scientists, chemists, biologists, and physicists to explore the scientific advances needed to achieve efficient solar energy driven transformation of carbon-neutral sources to energy-dense molecules. This problem is of key importance in developing a sustainable energy economy, as solar fuels may have the potential to provide a sustainable supply of transportation and aviation fuel from domestic, renewable resources.

The GRS program will feature oral and poster presentations accompanied by informal and formal discussions with a small number of attendees (60 participants). The presentations will be divided into three sessions, in which the most important aspects of the solar fuel research will be addressed. The first session will be devoted to the light capture and charge transfer in solid-state and biological/ biomimetic systems. The second session will be focused on materials and molecules that can catalyze reactions desirable for the development of solar fuel cells. The concluding session will handle homo/heterogeneous catalytic systems effective for solar fuel production. Approximately half of the GRS participants are expected to attend the GRC, where attendance will be capped at 200. The GRC program will include invited and contributed oral and poster presentations by both younger and more established researchers, focusing on the best emerging science in the field. The GRC will provide participants a state-of-the-art view of the interdisciplinary science of solar fuels, with eight topical sessions, two poster sessions, and one final session of late-breaking results and short talks drawn from the poster presentations.

Broader Impacts

The GRC and GRS will promote international collaboration in the science and engineering that underpins the development of a future solar fuels technology. This forum will also provide networking opportunities, mentoring, and perspectives on new research for younger participants at a critical stage in their scientific careers. The requested funds will be used to defray registration fee and/or travel costs of a diverse group of graduate student and postdoctoral participants in the GRC and GRS.